Spatio-temporal dynamics and multiple feature maps in primary visual cortex

The long term goal of this project is to develop a dynamical
theory of how neurons in primary visual cortex (V1) generate a
tuned response to multiple (rather than single) features of a
visual stimulus, and how these responses are spatially integrated
across the cortex to generate more global information about a
visual scene. A primary focus of the work is to extend current
network models of orientation tuning to incorporate the fact that
V1 cells are also selective for spatial frequency. This is
motivated by the considerable physiological and psychophysical
evidence suggesting that cortical circuits carry out a localized
two-dimensional Fourier decomposition of a stimulus rather than
simply performing local edge detection. Optical imaging of the
surface of cortex has revealed an intricate relationship between
the distribution of orientation and spatial frequency preferences
across cortex. How correlations between these two feature
preference maps is manifested by the local and long-range
circuitry of V1, and the consequences for the large-scale
dynamics of V1 is also investigated.
The primary visual cortex (V1) located at the back of the
brain is the first cortical area to process visual information
received from the eyes. One of the classical results regarding
the function of neurons (brain cells) in V1 is that they analyze
very local features of a visual image, that is, they carry out
image decomposition. (For example, V1 cells are sensitive to the
orientation of an edge representing the boundary between a light
and dark region of the image. This discovery by Hubel and Wiesel
led to the Nobel prize in medicine). A very important question
that follows from this is how our coherent perception of the
world is reconstructed. Until recently, it was thought that the
local information from cells in V1 was passed through higher
order processing stages in the brain where cognition occurs.
However, it is becoming clear that long-range circuitry within V1
could itself contribute to the process of reconstruction. The
basic aim of the proposal is to investigate this process by
developing a large-scale mathematical model of primary visual
cortex that incorporates the latest anatomical data regarding its
internal circuitry. Understanding how early stages in the visual
brain encode images has important applications to information
technology (such as the development of artificial vision systems)
and biotechnology (such as the development of an artificial
prosthesis for the visually impaired). In the latter case it
might be possible one day to artificially stimulate primary
visual cortex to induce a visual sensation, rather like a
controlled visual hallucination.